NSF FF: Planning: Building Pathways to Independence and Workforce Readiness Through Accessible Orientation and Mobility Learning

This FINDERS Foundry award helps all learners learn important orientation and mobility (O&M) skills that support safe and confident travel. The project will build a web based tool that uses new technology, including AI, to help students understand their surroundings and practice safe navigation in many places. By giving students a simple and flexible way to explore these skills, the project aims to make O&M learning easier to access and more consistent. Families, teachers, and students will help design the tool so it meets real needs and works well at home, in school, and in the community. Their ideas will guide how the tool looks, how it works, and what kinds of supports it provides. By improving O&M instruction and giving students more chances to build independence, the project hopes to increase long term access, confidence, and inclusion for students with visual impairments.

This FINDERS Foundry award co-defines technical requirements for multimodal assistive‑technology features to support spatial learning for all learners. The project will conduct surveys, interviews, and co‑design workshops with students, families, and teachers. Planning activities will generate wireframes, interaction workflows, and an early concept prototype that leverages accessible multimodal cues to support spatial reasoning. Partnerships with established assistive‑technology organizations will inform feasibility, interoperability, and long‑term sustainability of proposed design elements. Anticipated outputs include a validated concept prototype, refined design documentation, and a development roadmap suitable for a full‑scale future proposal. The project’s technical contribution lies in establishing foundational design principles for AI‑supported spatial‑learning tools that integrate seamlessly with existing assistive‑technology ecosystems.